Keys Marine Laboratory Research Housing Facility

The Keys Marine Laboratory (KML) commenced academic research and education programs in the 1980's through a public/private partnership between the Florida Institute of Oceanography (FIO) and Sea World of Florida, Inc. Based on the success of that partnership and recognizing the need for these programs and facilities the State of Florida purchased the KML in 1990. With the closure of other residential laboratory facilities in the region and the unprecedented scientific and political attention on the mosaic of South Florida environments, the KML has now assumed an even more critical support role. In the last five years usage by research and education groups has increased steadily and is beginning to exceed some of the capabilities of the current facilities. Particularly urgent is the need for improved and expanded housing accommodations for non-resident researchers. Lodging has been identified as one of the major impediments to conducting research in the region. Laboratory and boat facilities are equally important but at this point in time the KML can reasonably accommodate these needs. This project will provide funding to construct the first unit of a planned three-unit handicapped accessible housing facility which will provide additional lodging space for two to four (2-4) researchers/unit. This facility will help meet the need of regional, national, and international scientists studying the continentally unique systems of South Florida, including coral reefs.